Design to Increase Facility Capacity to Accommodate Change

9800537 Slaughter This research will develop design approaches for facilities which explicitly acknowledge and take into account changing requirements over the long term (e.g., 100 years). Specifically, the research will characterize interactions within and among systems that influence the capacity of built facilities to change over the long-term, which can be called "facility flexibility." Using the framework of interactions among systems, and defined types of changes, the research will explore the impacts of new design or technology innovations on the facility flexibility. Innovations may be in systems and their components or in construction processes, and can potentially decrease costs and time associated with effectively responding to changes. The research will be empirically based, using data from actual facilities and projects, and will use advanced computer analysis and simulation tools to organize the interaction framework and evaluate scenarios. The data on buildings will be collected from the owners, facilities managers, architects, engineers, and contractors as applicable. The data will be used to construct and inform the building systems and interactions framework. This framework will then be used to identify the nature of the system's capacity to respond to changes, specifically in function, capacity, and flow, over the long term. These scenario-testing models will provide a means through which to estimate the relative costs/benefits, time, performance, and worker safety associated with accommodating the changes. The scenario models can then be used to estimate the degree and nature of the impacts of design and technology innovations. The results from this research will be a systematic methodology and a set of tools (the building system and interaction framework and scenario models) to assess the capacity of a built facility to respond to changes over the long term. ****